Phloem in Plant Tissue Cultures: An Alternative Approach

Phloem sieve elements differentiate in tissue cultures of Streptanthus tortuosus (Brassicaceae). The cell walls of the callus sieve elements are thicker than the walls of the surrounding parenchyma cells. When treated with a solution of cell wall- digesting enzymes, the callus parenmchyma cells form wall-less protoplasts. The sieve elements, however, retain their walls during this procedure, especially the walls which form sieve plates between the sieve elements. As a result, it has been possible to separate sieve elements from parenchyma cells in these cultures. Using the sieve element fractions as immunogens, monoclonal antibodies directed against the antigens present in sieve elements have been produced. The monoclonal antibodies were screened for reactivity with phloem cells in frozen sections of S. tortuosus callus tissue. These antibodies will be used to identify phloem- specific proteins using immunoblotting techniques and to identify specific sieve element organelles and membranes that contain the identified proteins. Since the antibodies are also able to cross- react with sections of Arabidopsis plant tissues, the antibodies will be used to screen an Arabidopsis expression library in order to identify phloem-specific genes. Specialized cells known as phloem sieve elements play a vital role in the biology of higher plants. These conducting elements are responsible for passage of nutrients from leaves to non- photosynthetic organs such as roots and meristems. In addition, long-distance transport of assimilates is a key step in the movement of nutrients into the harvestable grains, fruits, and tubers that form the basis of agriculture. Despite the critical role that these cells play in higher plants, many key aspects of phloem development, structure and function remain to be determined. The proposed research will address the basic cell biology of phloem sieve elements. The phloem-specific antibodies that will be produced in this study should allow new approaches to determining the genetic basis of phloem development and function.